NSF Young Investigator

9457923 Shull The primary objectives of this work are to relate polymer adhesion to the molecular structure of the interface, and to quantify the interfacial features which dominate many of the properties of polymer/metal composite systems. Well characterized polymers synthesized by anionic polymerization will be used as model systems. %%% ***